The Precessionally-Driven Dynamo

More than a half century ago, Sir Edward Bullard conjectured that the
motions necessary to generate the Earth's magnetic field in the
Earth's electrically-conducting fluid core might be driven by the
luni-solar precession. All that has been unequivocally established
in the intervening 55 years is that precession can in principle
supply the geodynamo with abundant power. The question of whether
it can draw on this power is still unanswered, and this provides
the challenging target that is the basis of the intellectual merit of this
proposal.

Much has been learned during the last decade about the structure
and stability of precessionally-driven flows, but only when
magnetic fields are absent. In analogy with parallel studies of
convectively-driven system studies, it is anticipated that the character
and strength of a precessionally-driven flow will be dramatically
different in the presence of a "sufficiently-strong" magnetic field
meaning, in the geophysical context, a field of strength comparable
with that inferred for the Earth's core. The proponents to investigate this
matter as part of a systematic study of such magnetoprecessional
dynamos", and also to see if they provide a new example of so-called
strong field dynamo action".

The main theoretical tool to be used in the proposed research
is a computer code that has been under development at UCLA for
the past 18 months. It employs the grid point based "method of
overlapping grids". This is very suitable for rotationally
flattened bodies of fluid such as Earth's core. The method
has been generalized here so that it solves the
full magnetohydrodynamic (MHD) dynamo equations in 3 dimensions.
The code is on the verge of completion and this proposal
mainly seeks support to parallelize it and to improve
its efficiency so that Bullard's proposal can be thoroughly evaluated.

The broader impact of the completed code will exceed its
application to precession. Without major modification, precessional
driving can be replaced by buoyant forcing, so putting the model in
competition with other codes currently under development for
spherical convective dynamos. Without further change it could be
used to study dynamos operating in rotationally flattened objects
(Saturn, galactic discs,. . . ). The investigators plan to make
these generalizations. It would also be possible to generalize
to tidally distorted objects such as extra-solar planets.
Even if Bullard's speculation has to be abandoned, it will be
easy to investigate how a convectively-driven geodynamo is
influenced by precession.